Comprehensive, Quantitative, Predictive Model of the Human Knee Joint

This research will involve the development of a model of the human knee joint which will allow quantitative and predictive analyses of normal and pathological knees. The model will be validated by measurements on cadaverous material and by experiments on people. The dynamic predictive capability of the knee model will be evaluated using optimization analyses of the lower extremity musculoskeletal model during gait to establish the time course and force level of the individual muscles as compared to synchronously acquired myoelectric signals. The model will allow study of the normal and pathological knee joint's dynamic and kinematic properties. In this way, it will contribute to the prevention and treatment of knee joint injuries and will aid in the design of knee prostheses.